Upgrading of an Ion Accelerator for Undergraduate Use

9451356 Monce This project will replace the ion accelerator at Connecticut College and enhance the associated instructional activities. The new accelerator will enable the revitalization of a senior-level experimental physics course, permit accelerator-based experiments to be introduced into the sophomore-junior laboratories, and find applications in introductory physics as well. The accelerator will also enhance the opportunities for student research projects by allowing experiments in a wider energy range and using a greater variety of beams, as well as opening up new areas of inquiry such as surface physics. Finally, the new accelerator will allow us to engage in interdisciplinary work with anthropology and biology in the x-ray analysis of materials.